REU: Systematics and Phylogeny of Madagascan and African Dalechampia (Euphorbiaceae)

Dalechampia is a genus of vines of the poinsettia family (Euphorbiaceae) common throughout the lowland tropics in Asia, Africa, and the Americas. Although much is now known about the species diversity, phylogenetic relationships, and pollination biology of the New World species, in large part because of Dr. Scott Armbruster's studies over the last ten years, relatively little is known about Old World species. Dalechampia is being employed as a model system for the study of how tropical plants evolve in response to selective pressures generated by specialized pollinators. Old World species must be integrated into these studies to complete a phylogenetic analysis of the entire genus. Furthermore, accurate floristic inventories (used in making management and conservation decisions) of tropical regions of the Old World as well as the New depend on reliable taxonomic information for common species such as Dalechampia. In the Old World, Dalechampia is most diverse in Madagascar and southern Africa. Dr. Armbruster will collect herbarium specimens in this region along with liquid-preserved material, for morphological and biochemical analyses, including analyses of the unusual resins and fragrance compounds produced by the plants and used by pollinating bees. Observations of the behavior of pollinating animals will also be made. Morphological data will be analyzed using cladistic methods to determine likely phylogenetic trees that show relationships among Old World taxa and between Old and New World groups. These results will improve the classification system for Dalechampia, indicate likely migratory pathways in the evolution of Old and New World species, and determine the origins of the various pollination mechanisms found in these plants.